Postdoctoral Research Fellowships in Chemistry

This is the first year of a postdoctoral fellowship award to Dr. James Hutchison. Dr. Hutchison received his Ph. D. for work with Dr. James Collman at Stanford and will be working with Dr. Royce Murray at North Carolina. In this laboratory he will learn a wide variety of analytical techniques and will learn how to measure small changes in electronic flux in biological systems. This will help him to pursue his career interests in studying synthetic ion channels based on peptide supported poly-crown ethers. %%% This is the first year of a postdoctoral fellowship award to Dr. James Hutchison. He will be studying the basic processes by which small electrically charged chemical species pass through biological systems. Such research can have a major impact on drug design.